Primes and divisors

Abstract

Title: Primes and divisors

This proposal is concerned with three projects related to the distribution
of prime numbers and divisors of integers. The first project concerns
continuing investigations (jointly with S. Konyagin) of subtle
inequities in the distribution of primes in arithmetic progressions.
Such problems are intimately connected with the distribution of non-trivial
zeros of Dirichlet L-functions and the Riemann zeta function. The research
focus is on further illuminating the influence of hypothetical zeros of the
L-functions having real part different from 1/2.
A second project deals with the limitations of sieve methods, which are
powerful techniques for bounding the number of primes (or numbers with
a bounded number of prime factors) in an integer sequence.
The goal of the proposer's work is an improved understanding of
how the distribution of primes in a sequence is influenced by the
distribution of the sequence in arithmetic progressions and the distribution
of the sequence on numbers with an odd number (respectively and even number)
of prime factors.
The final project is to improve bounds for the density of integers possessing
a divisor in a given interval, a problem which is central to the theory of
the distribution of divisors of integers.

The study of prime numbers is more than 2000 years old, and the most important
problems revolve around how the primes are distributed. Besides applications
to many other branches of mathematics, prime number theory is crucial to
modern coding theory and cryptography, e.g. secure Internet communication.
The proposed research deals with questions concerning how the primes are
distributed within certain sets of integers, and questions on the related
subject of the statistical behavior of the distribution of divisors of
numbers. The proposer will involve graduate students,
post-docs and/or talented undergraduate students (REU) in these research
projects.